Commutative Algebraic Aspects of Birational Algebraic Geometry

This project focus on problems at the interface of commutative algebra and
algebraic geometry. Specifically, several commutatative algebraic
approaches to problems in higher dimensional birational algebraic geometry
are proposed. These include building on the PI's prior work on ideal cores
to prove a conjecture of Kawamata's on the existence of a global section
for any ample line bundle on a smooth projective variety which is adjoint
to an ample bundle. It also includes the development of the theory of
multiplier ideals in the singular setting, and a study of the commutative
algebraic properties of jet schemes, especially for combinatorially rich
cases such as monomial schemes.

The work proposed here is part of the broader landscape of research in
"pure" algebraic geometry and commutative algebra, the fields that study
the geometric objects (called algebraic varieties) that can be described
by polynomial equations. These fields provide the underpinnings of several
important areas of applications of mathematics to problems in government
and industry. Examples include error-correcting codes based on algebraic
varieties, and computer-aided design (CAD) which "draws" geometric objects
on the computer screen by plotting pieces of algebraic varieties. While
this project does not address specific current problems in applications,
it does contribute to the healthy thriving infrastructure of the subject
necessary to support applications in the future. Furthermore, it is
expected that several of trainees in this project will continue later with
more applied aspects of the subject by moving to positions in industry and
government (such as the National Security Agency).